Fundamental Experiments in Ion-Atom Collision Physics

A series of experiments involving the most basic three-body ion-atom collision systems is underway. A proton-photon coincidence experiment involving an atomic hydrogen target will be completed to extend the study of basic three-body ion atom collision systems to the measurement of differential cross sections for excitation, elastic scattering, charge transfer, and ionization of an atomic hydrogen by alpha particles. This set of experiments will culminate in alpha particle-photon coincidence experiment involving an atomic hydrogen target. Data obtained from the coincidence experiments will provide detailed information on the magnitude and relative phase of the scattering amplitude as a function of the projectile scattering angle and energy. The proposed experiments use the capabilities of the unique facility located at the University of Missouri-Rolla. They will provide the most detailed information possible on these fundamental systems.